RIMI: Cellular Communication II

9450445 The proposed research would be directed at (1) characterization of high affinity choline transporter (2) gonadal hormones and neuropeptide Y receptors in rats (3) identification and characterization of endogenous neuromodulators in Aplysia and (4) conditioning related acetylcholine release in rat necortex. The proposed work would also help expand research capabilities and training opportunities in physiology, with an emphasis in neuroscience, at Meharry Medical College.